Summer Undergraduate Research Experience in Physics at the University of Michigan

This action will support the continuation of an REU Site at the University of Michigan-Ann Arbor. Approximately twenty students, mostly from other colleges, will spend a ten-week research apprenticeship. Recruitment for the program will be through SPS chapters nationally, with special attention to recruiting from historically black institutions and small colleges which lack the large number of research opportunities available at the University of Michigan. In addition to their research experience, students will have the opportunity to take a course in shop technique and mini course in practical electronics skills. Opportunities to explore research areas other than their primary placement will be provided.